The Mathematics and Physics of Water: A Summer Activities Camp

Heritage College and Seattle University jointly conduct a four-week summer commuter/residential mathematics and physics camp for ethnic/racial minority girls entering the eighth grade, with follow-up activities throughout the subsequent academic year. The targeted populations are Native American and Hispanic girls from the agricultural Toppenish area, and African-American girls from the urban neighborhoods near Seattle University. The program, which involves 50 participants each summer in the summers of 1992-1994, serves students who are able and well-motivated but who might well lose interest in science and mathematics without special attention. Activities include: 1) small group daily interactive activities and experiments at each campus site on topics such as fluid flows, waves, and water quantity and quality, supplemented by field trips and guest scientists, primarily women; and 2) field experiments at a residential lakeside science camp.